The XIV International Symposium on Lattice Field Theory; St. Louis, Missouri; June 4 - 8, 1996

The XIV International Symposium on Lattice Field Theory will be held at Washington University in St. Louis on June 4-8, 1996. Lattice field theory is a branch of theoretical physics in which very complicated calculations are carried out by approximating The continuum of space and time by a discrete lattice of points. this approximation makes it possible to explore, for example, the consequences of the strong nuclear force for a variety of elementary particle processes. The coming Symposium will enable leading theoretical physicists to exchange ideas on a broad spectrum of topics within lattice theory. Such an exchange is very important to progress in the field.